CAREER: Contact Structures and Low-Dimensional Topology

Proposal DMS-0237386
PI: Ko Honda (USC)
TItle: CONTACT SRUCTURES AND LOW-DIMENSIONAL TOPOLOGY

ABSTRACT

This project focuses on the topology of 3-dimensional manifolds via contact
structures. Over the last several years, the investigator and his
collaborators (Colin, Etnyre, Giroux, Kazez, Matic) have developed a largely
cut-and-paste theory of tight contact structures. Taking this program further,
he plans to conclude the project on finiteness questions for tight contact
structures (with Colin and Giroux), investigate Legendrian and transverse knots
(with Etnyre), and explore connections with foliation/lamination theory (with
Kazez and Matic). More fundamentally, he seeks to understand the nature of
tightness, and relations with hyperbolic geometry and finite type invariants of
3-manifolds.

This project is a continued study of 3-dimensional spaces. The 3-dimensional
spaces we study will locally be similar to the standard (Euclidean)
3-dimensional space. These objects may be very complicated globally, but a
local observer cannot tell the difference, just as an ant cannot tell whether
it is sitting on a flat plane or a very large sphere. In our work, we seek to
better understand 3-dimensional spaces by employing a new type of probe, called
a contact structure. Although mathematicians have been cognizant of contact
structures for decades, a good understanding of such structures has become
gradually possible only over the last twenty years. Contact structures are
also intimately connected with 4-dimensional geometry (the geometry of
space-time), quantum physics, and dynamics (such as fluid dynamics).